Nonsmooth analysis on smooth manifolds and its applications in control and optimization

DMS 0102496
PIs: Ledyaev, Treiman, and Zhu

PROJECT ABSTRACT

The main objectives of this project are to develop nonsmooth
analysis for semicontinuous functions and multivalued mappings
on smooth manifolds and to apply these new analytical techniques
to a variety of optimization and control problems. Examples
of nonsmooth (nondifferentiable) functions on manifolds are
provided by the maximum eigenvalue of a symmetric matrix on the
manifold of symmetric matrices, the Riemannian metric and
Riemannian distance functions on Riemannian manifold, control
Lyapunov functions for stabilization of control systems on
manifolds and optimal value functions for optimal control
problems. The major directions for research are the following:
(i) subdifferential(infinitesimal) calculus for nonsmooth
functions on smooth manifolds;
(ii) applications of subdifferential calculus to optimization
problems on smooth manifolds;
(iii) applications of subdifferential calculus to the study
of invariance of closed sets and monotonicity of semicontinuous
functions with respect to solutions of differential inclusions
on manifolds;
(iv) applications of these results to the study of generalized
solutions to Hamilton-Jacobi equations on manifolds;
(v) applications to the derivation of optimality conditions
for general nonsmooth control problems on manifolds;
(vi) applications of subdifferential calculus for constructing
discontinuous optimal and stabilizing feedback controls using
nonsmooth optimal value and control Lyapunov functions;
(vii) the study of interior point methods in semistable and
semidefinite programmings via discontinuous feedback techniques
and the study of generalized gradient flows on manifolds.

Design of high-performance feedback controls for nonlinear systems
whose mathematical models include manifolds is an active research
area oriented to automotive, aerospace, and naval applications.
It has been recognized that, in general, control tasks (such as
stabilization or robust optimal control) for these systems cannot
be performed using traditional continuous feedback and require
discontinuous feedback. Since existing mathematical tools
(differential inclusion theory) have proved inadequate for
analysis of discontinuous feedback performance, this research
project is aimed at developing new analytical tools and techniques
for such analysis. But feedback control is not the only one research
field which will benefit from these new analytical tools. Other
fields of application for these research results include numerical
and theoretical optimization, in particular, a development of
robust numerical methods for new semistable and semidefinite
optimization problems, and generalized solutions of partial
differential equations on manifolds .